Presidential Young Investigators Award: Ceramic and Catalyst Materials -- Synthesis Chemistry and Adsorption Properties

This presidential Young Investigator award encompasses three projects in the general area of ceramic and zeolite chemistry. One of these concerns mass-transport limitations in sol-gel synthesis; the rates of diffusion of small and large precursors in viscous reacting systems. Another is the diffusion of guest molecules in zeolites and the influences thereon of zeolites structure, crystal defects and cation occupancy; both theory and experiment are applied. The other project is a study of the chemistry and kinetic behavior of polyoxoanions, the precursors to zeolite-like materials and most ceramics; silicates, aluminates, borates, phosphates, and ferrites are studied. A variety of techniques, both experimental and computational, are employed, with an emphasis on nuclear magnetic resonance methods. This effort is directly applicable to the synthesis and processing of zeolites, zeolite-like materials, and ceramics in general. Some of it may also have application in polymer synthesis and processing and in processing of glasses and thin films.